A Self-Definitional Model of Social Influence

The idea that opinion minorities can exert influence over those holding majority positions is of considerable interest for social scientists studying social change. Evidence of minority impact can be found in selected historical events, i dª @ ¢cªnM+ @ _+!mM+ @ ú&8nM+ 8 + + -O-À. `- +,Ñ┐0 - H P \ d l t | ª Þ eC >